POWRE: Analysis of Interactions Between mss4 and SAP90

Garcia Abstract
99-73716

The goal of this POWRE research is to examine the interaction between mss4, a guanine nucleotide exchange factor) and members of the SAP90 family of proteins. It is hypothesized that mss4 may control the binding of the kainate receptor to SAP90. Kainate binding to SAP90 may serve to localize the kainate receptor to the synaptic membrane and to influence its activity (it slows desensitization). Dr. Garcia presents preliminary results that mss4, obtained from a yeast two-hybrid screen, binds to SH3 and flanking regions of SAP90. Mss4 is a guanine nucleotide exchange factor implicated in vesicle exocytosis. There are two specific aims, involving 1) analysis of the interaction between the two proteins, and 2) functional analysis of mss4 function. The studies in aim 1 will further delineate the sites of interaction and determine if mss4 can bind to other SAP family members. Immunoprecipation experiments will try to determine the identity of protein complexes (under different detergent conditions) associated with mss4. The influence of the SAP90 binding site on the guanine nucleotide exchange activity of mss4 will be assessed by measuring the GDP dissociation rate from rab3a.